Enhancing the Reach and Contributions of Informal STEM Learning: A Consensus Study

Opportunities to learn about science, technology, engineering, and mathematics (STEM) are all around. Yet, people often assume that formal school settings are the only places to learn about the STEM disciplines. A consensus report from The National Academies, Learning Science in Informal Environments: People, Places and Pursuits (NRC, 2009), helped to upend this assumption and galvanized over a decade of expansion in programming and research focused on informal STEM learning. In the years since publication of the 2009 report, opportunities to learn science and STEM more broadly in informal environments have greatly expanded and they now serve as an essential component of STEM education and engagement across the country. In parallel with the expansion of programs, research on all aspects of STEM learning has continued to progress, offering new insights into how to improve people's STEM learning in all settings. Given this tremendous growth, the new insights generated by advances in research, and the considerable changes wrought by the COVID-19 pandemic the time is ripe for taking stock of the past 15 years of work. This new consensus study will update the 2009 report to codify what is currently known about how to best support learning across informal STEM environments, thus laying the groundwork for effective decision-making in practice, policy, and research in the field. The report will help to identify gaps for where additional programming in informal STEM education would be valuable and help decisionmakers to better understand the landscape in order to advocate for high-quality STEM learning opportunities.

The Board on Science Education at the National Academies of Sciences, Engineering, and Medicine will appoint an expert committee to conduct a consensus study on Enhancing the Reach and Contributions of Informal STEM Learning. The study will take stock of the evidence base on STEM learning in informal environments, and identify trends in research and practice across the range of informal STEM learning experiences and environments that compose the field of lifelong STEM learning. The consensus report will: (1) characterize the state of informal STEM learning by defining who participates and supports learning in informal environments, as well as describing the nature of programming and learning opportunities in the United States; (2) discuss how understandings of learning have evolved over time, describe where the field has seen the most growth over the past decade in research and practice, and identify infrastructures and organizational/institutional practices that have emerged in that time; (3) identify evidence-based strategies that can be used to expand the reach of informal STEM learning, and point to relevant challenges and opportunities; and (4) develop recommendations for policy, practice, and research for enhancing the reach and contributions of informal STEM learning experiences.

This consensus study project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing everyone multiple pathways for accessing and engaging in STEM learning experiences.